Global Network for Environmental Technology

9419600 Robertson This proposal is to develop a prototype network and associated databases to link engineers using modern communication technology. This project will use the World Wide Web with a dedicated server to access the relevant databases. This facility will be used initially by the engineering community in connection with sustainable development activities in the United States and in Latin America. It will enable that community to collaborate on problems of the environment and engineering in a manner not now possible. After being demonstrated, and using the World Wide Web, it will be possible for engineers throughout the world to collaborate on sustainable development and related issues with improved ease. ***